Ultimate Testing of a Shell Bridge Model

The research will evaluate the overloads and ultimate load on a 1/3 scale model of a shell-type bridge structure which was previously analyzed and evaluated on a smaller scale model. The analytical study will be verified and further analysis on several other cross-sections will be investigated for comparison of load carrying capacity and economic consideration.